CAREER: Partial Differential Equation-based Image Processing with Applications to Radiation Oncology

In the past decade, new nonlinear partial differential
equations (PDEs) have been developed for various image processing
applications, such as noise reduction, edge detection, image
segmentation and restoration. While the attention of the
scientific community in this area predominantly focused on
creating the new PDEs, very little attention was paid to
developing numerical algorithms that approximate their solutions.
The few numerical algorithms that are currently used suffer from
a variety of problems: they are not accurate enough, too slow,
and not fault-free. In this project, the investigator develops
accurate, efficient, and robust numerical algorithms for
nonlinear PDEs in image processing. The research activities are
based on the investigator's extensive work in the field of
hyperbolic conservation laws, and include numerical methods for
the Hamilton-Jacobi equations, fast algorithms for high-order
nonlinear PDEs, algorithms for computing steady-state solutions,
numerical homogenization of Hamilton-Jacobi equations and
multi-resolution analysis, analysis of nonlinear diffusion
equations, constrained morphing active contours and geodesic
flows, and "non-blind" algorithms for image processing. A
portion of the research activities focuses on improving existing
algorithms in order to solve a specific imaging problem in
radiation oncology treatment planning.
The investigator develops novel mathematical techniques for
image processing and uses these techniques for solving problems
in the field of radiation oncology imaging. Radiation oncology
treats cancer by delivering relatively small doses of radiation
to tumors in order to eliminate cancer without destroying or
chronically damaging healthy tissues in and around the growth.
CT and MRI scans are used as three-dimensional anatomical models
to ensure that the treatments conform geometrically to the tumor
target. This process depends critically upon identifying the
location of the tumor as well as the healthy organs (in order to
minimize the dose of radiation in these areas). Despite extended
research, the existing mathematical tools for image processing
are unsuitable for clinical medical applications. The
segmentation of the CT and MRI scans is still carried out by
manual tools, and consumes about one-half of the time required to
plan the treatments. The investigator designs accurate and
reliable automated algorithms that would significantly shorten
this time and have a big impact on radiation oncology. He
integrates into his work educational activities that demonstrate
the importance of applied mathematics in a broad spectrum of
sciences. Special emphasis is given to applications of
computational mathematics in biology and cutting-edge
technologies. The planned educational activities include
programs for junior-high, high-school, undergraduate, and
graduate students. The investigator works to increase the gender
and ethnic diversity in the mathematical sciences by encouraging
under-represented groups to study applied mathematics and choose
it as a future career.